Investigating a Possible New Source of Modeling Error for Estimates of Continental Surface Temperatures in Paleoclimate Studies

9627795 Sloan The purpose of this study is to investigate the issue of continentality (i.e., temperatures associated with large land masses), from the perspective of possible model sources for discrepancies between model results and proxy data interpretations of Eocene continental temperatures. The issue of continental interior climate characteristics persists as one of the major questions and most active debates of paleoclimatology. Inclusion of the correct zonal temperature profile, along with the annual cycle in model calculations, may result in large winter freeze line displacements, and associated changes in other temperature parameters. This work will focus on (i) the position and locations of the model-predicted freeze line throughout the year (including isotherms for +2, 0, -2 and -5 degrees C, corresponding to various biologic tolerance limits), (ii) the annual amplitude of temperature change over the continents, (iii) the summer maximum temperature values in continental interior regions.